Planning Grant: Exploring an Undergraduate Academic Pathway to Mathematics and Computer Science

Voorhees College will implement a comprehensive analysis of the Voorhees STEM educational programs as part of a planning process to develop a five-year Implementation Project proposal to HBCU-UP. Voorhees College is a private, historically black, coeducational, liberal arts, baccalaureate degree-granting institution, affiliated with the Episcopal Church.

The HBCU-UP planning grant will identify and explore teaching and learning strategies to improve teaching and learning in the STEM curriculum. They will concentrate on exploring the critical transition points along the educational pipeline from public school to graduate school. The planners will also consider strategies to systematically increase the number of Voorhees students attending graduate school in the STEM disciplines. The planning process includes strong planning strategies such as site visits to HBCUs with Implementation Projects, and the extensive analysis of current curriculum and institutional data.